Quantum Nuclear Magnets and Superfluid 4He in Nanopores

9802050 Takano This project investigates quantum nuclear magnets at positive and negative spin temperatures. The studies will be performed primarily at sub-microKelvin spin temperature using the powerful nuclear demagnetization cryostats in the MicroKelvin Laboratory of the University of Florida, one of only two such facilities in the United States. The research will investigate the spin I=1/2 nuclei in yttrium and deuterium hydrides and their alloys. Their magnetic properties will be studied using ac susceptibility techniques and near-zero-field nuclear magnetic resonance employing superconducting quantum interference devices. These nuclear magnets promise to be the first realizations on the laboratory of a quantum dipolar magnet and random dipolar quantum magnets. The studies will address fundamental issues in magnetism involving fluctuations of highly quantum mechanical spins. A significant aspect of the project is to advance the education of postdoctoral associates, graduate students, and undergraduate students involved in experiments at a unique national facility. %%% This project investigates quantum nuclear magnets at positive and negative spin temperatures. The studies will be performed primarily at sub-microKelvin spin temperature using the powerful nuclear demagnetization cryostats in the MicroKelvin Laboratory of the University of Florida, one of only two such facilities in the United States. The research will investigate the spin I=1/2 nuclei in yttrium and deuterium hydrides and their alloys. Their magnetic properties will be studied using ac susceptibility techniques and near-zero-field nuclear magnetic resonance employing superconducting quantum interference devices. These nuclear magnets promise to be the first realizations on the laboratory of a quantum dipolar magnet and random dipolar quantum magnets. The studies will address fundamental issues in magnetism involving fluctuations of highly quantum mechanical spins. A significant aspe ct of the project is to advance the education of postdoctoral associates, graduate students, and undergraduate students involved in experiments at a unique national facility. ***